Reynolds Number Effects on Turbulent Boundary Layer Transport

Abstract

In this renewal proposal, Dr. Klewicki plans to carry out further experimental investigations on the effect large Reynolds number on the cross-stream transport in a turbulent boundary layer. Even though much has been learned form the experiments carried out under the current Grant CTS-9905526, better understanding of such transport mechanisms can be obtained when the experimental parameter range is extended, and additional transport terms measured. The experiments will be carried out in a wind tunnel and in an environmental test facility in the Great Salt Lake Desert in Utah. In the current Grant, 3 undergraduate students participated in the experimental work through the REU program.